Development of an Interdiscplinary Course in Acoustics for Non-Engineering Majors at Swarthmore College

A course with associated laboratory is being developed by the Department of Engineering that will offer to first- and second- year students at Swarthmore College an exposure to basic scientific and engineering principles through an exploration of the acoustics of musical instruments as well as the acoustics of the human voice, structures, and the environment. The intended audience is predominantly non-majors in the sciences and engineering, although attraction of students to these fields is an objective of the course. Emphasis is placed on hands-on analysis by students of phenomena already within their experience: how musical instruments (including electric and electronic ones and the human voice) produce their characteristic sounds, how acoustic waves travel through solids, liquids, and gases and are reflected, refracted, and absorbed, and how sound and its impact on the environment (including humans) is measured and quantified. Associated laboratories allow students to explore phenomena on their own in a creative manner, working in groups of 4-5 students. Laboratories are designed to teach basic principles such as resonance, superposition, time and frequency domain representations of signals, wave motion in one, two, and three dimensions, and the mechanics of the human ear.